Workshop on "Geometry and Representation Theory"

Abstract

Award: DMS-0400785
Principal Investigator: Philip A. Foth, Paul Bressler, Kirti N. Joshi

A powerful influx of methods and ideas from geometry into the
representation theory led to significant breakthroughs and
stimulated the emergence of geometric representation theory as an
important area of research in modern mathematics. Geometric
methods have been utilized to explore many significant problems
in representation theory. The Langlands program provides an
example of the synthesis of representation theory, arithmetic and
geometry. In its arithmetic avatar the Langlands correspondence
envisages a description of certain kinds of representations of
the Galois group of a number field or a function field in terms
of automorphic representations. The geometric avatar of the
Langlands correspondence pioneered by Drinfel'd and Laumon has
also attracted a lot of attention and has turned out to be a
confluence of several areas of mathematics: representation
theory, D-modules, Kac-Moody and vertex algebras and integrable
systems, Hitchin maps to name a few. Representation theory has
been omnipresent in theoretical physics and conversely, problems
and developments in physics motivated much progress in
representation theory which, in turn, was a significant input
into other branches of mathematics. Conformal Field Theory led
to intensive study of the representation theory of the Virasoro
algebra, Kac-Moody algebras and vertex operator algebras. Results
in representation theory have had a significant impact on the
understanding of the structure of moduli spaces. In the theory
of integrable systems it has been observed long ago in numerous
examples that physically meaningful completely integrable systems
as well as explicit formulas for the integrals of motion are
intimately related with the geometric representation theory. All
these developments serve as our motivation to organize a
conference on geometric representation theory, a forum where the
majority of participants will be young researchers and advanced
graduate students, learning from leading specialists and further
advancing their research projects.

Representation theory is a quintessential branch of modern
mathematics which studies symmetries of various algebraic
systems. The results and ideas from representation theory found
many important applications in pure and applied mathematics as
well as quantum physics, biology, economics, just to name a
few. More recently a powerful merge of ideas from geometry made a
significant impact on the discipline and led to important
breakthroughs. The main goal of our conference is to gather
leading specialists in representation theory as well as beginning
researchers and advanced graduate students, to create a forum
where participants can exchange new ideas, communicate recent
advances and assist younger participants in developing successful
research strategies. A special emphasis is made on attracting
women and underrepresented minority participants, especially
those at the dawn of their careers.